Research in the Department of Mathematical and Computer Science at the Colorado School of Mines

This REU program in the Department of Mathematical and
Computer Sciences (MCS) at the Colorado School of Mines (CSM)
is modeled after the department's successful Field Session
program. The REU summer program will involve 6 students
including 2 CSM students and 4 students from other universities.
The students will work on projects of interest in the department
and the university. The projects involve not only technical
mathematical and/or computer science skills, but also
communication and management skills.

The projects serve as an introduction to some of the research
that is being conducted in the department. We hope that some of
the student participants will be sufficiently intrigued so that
they will seriously consider at least a Master's degree in our
department. The projects are in the areas of numerical analysis,
applied mathematics, software development, wavelets, fuzzy
methods, pattern recognition, visual perception, inverse
problems, stochastic methods, approximation theory, linear
algebra, noise reduction, data compression, and dynamical
systems. Some local companies have expressed interest in the
proposed research projects. We will solicit the opinions of the
companies in defining the projects more precisely.